Wikisym Doctoral Consortium

This is funding to support a Doctoral Consortium (workshop) of approximately 8 promising graduate students from the United States and abroad, along with a panel of about 5 distinguished research faculty mentors. The event will take place in conjunction with the 7th International ACM Symposium on Wikis and Open Collaboration (Wikisym 2011), which will be held October 3-5 2011.in Palo Alto, CA. Wikisym is the leading international forum for bringing together researchers, practitioners, and entrepreneurs working on open collaboration. The topic of open collaboration is the study of the forms of collaboration found in open source software and communities such as Wikipedia, Yahoo! Answers, Slashdot,and Digg. Such systems have shown the power to be gained from creating technologies that enable large distributed groups of people to collaboratively create artifacts of lasting value. The Wikisym conference is attended each year by approximately 100 people from around the world. Its proceedings are published in the ACM Digital library and are considered archival work in the field.

The Doctoral Consortium is a research-focused meeting of a group of 8-15 selected Ph.D. candidates and a panel of four distinguished research faculty that takes place at the Wikisym conference. The Doctoral Consortium will take place on October 2nd, preceding the event. The Doctoral Consortium Chair is Loren Terveen (University of Minnesota, USA). The WikiSym Doctoral Consortium has been successful for the past three years in attracting an international and interdisciplinary student constituency. It helps new researchers develop peer relationships and relationships with experienced researchers and practitioners. It also offers these new researchers expert feedback and allows them to attend and participate in the leading international conference focused on open collaboration.

Broader impacts: The annual Wikisym doctoral consortia traditionally bring together the best of the next generation of researchers in open collaboration, allowing them to create a social network both among themselves and with senior researchers at a critical stage in their professional development. Applications are encouraged from all doctoral students whose research is Wikisym-related, regardless of the fields in which they are earning their degrees. Participation is encouraged from a broad range of relevant disciplines and approaches, including (but not limited to) computer science, sociology, psychology, anthropology, information science, cognitive science, rhetoric, communications, and economics. While NSF funds will be used chiefly to support participation by students enrolled in graduate programs in the United States, some international participants may be supported as well in recognition of the fact that the Wikisym field embraces educational and cultural traditions that vary in different parts of the world. The organizers will try explicitly to identify and include the broadest possible group of highly qualified participants. As a consequence of these steps, the student and faculty participants will constitute a diverse group across a variety of dimensions, which will help broaden the students' horizons to the future benefit of the field.